MGR Honorable Mention: Nancy E. Hill

This special award will give Ph.D student Nancy Hill additional flexibility in pursuing her graduate studies and research initiation in psychological research. This award will strengthen minority participation in research in this area.